Cohomology and Symmetry

Symmetry is one of the most powerful organizing principles in mathematics: objects that arise in geometry and topology often carry hidden symmetry that can be used to simplify otherwise intractable problems. This project will develop and apply tools that make such symmetry precise, using them to attack questions that have resisted solution for decades. The project’s central objects of study lie at the meeting point of three mathematical areas--algebraic geometry, representation theory, and topology--and the project's guiding theme is that ideas transported between these areas often yield unexpected progress in each. Beyond its mathematical goals, the project will advance scientific infrastructure by developing rigorously tested, freely available software to the open-source computer algebra system Macaulay2, a tool used throughout the mathematical sciences for computation and experimentation. The project will also support the training of the next generation of mathematicians, and the wide dissemination of results through publications and presentations at seminars and conferences.

The project will build upon recent results of the principal investigator using homological and representation-theoretic techniques, centering on two overarching reseach goals. The first is to develop new methods to compute the stable cohomology of line bundles on flag varieties in arbitrary characteristic, a form of representation stability introduced by the principal investigator in joint work with Raicu and rooted in recent progress on the Akin-Buchsbaum-Rota conjecture. The project will construct explicit characteristic-free resolutions by exterior powers, with the aim of computing stable sheaf cohomology and clarifying the failure of Green's conjecture in positive characteristic, thereby advancing understanding of the Borel-Weil-Bott theorem outside characteristic zero. The second main research goal of the project is to exploit a recently-discovered connection between the homology of nilpotent Lie algebras and counterexamples to the generalized Total Rank Conjecture. The principal investigator’s recent joint work with Sam and Weyman reinterprets the Iyengar-Walker counterexamples as a special case of Kostant's theorem, an observation that has already produced new counterexamples of substantially smaller rank. The project seeks to determine the total ranks of the resulting complexes and extend the method to more general classes of Lie algebras, with the aim of establishing sharp lower bounds for the total rank of complexes with finite-length homology. The methods used will call on both the topological roots of the Dold-Kan correspondence and the structure of derived divided power categories, continuing the principal investigator's program of connecting tools from different areas to make progress on longstanding open problems.